Statistics Laboratory for the Social Sciences

A statistics laboratory has been established at Carleton to support undergraduate courses in the departments of Economics, Political Science, Sociology/Anthropology, Psychology and Mathematics. Students will have substantial hands-on experience with real data about real problems of interest to them, and will gain understanding of both the power and limitations of statistics. The statistics laboratory is based on: o microcomputers having the memory and calculating facililty to make effective use of complex statistical and data management programs on large data sets; o the SPSS and MINITAB statistical packages, related graphics programs, relational data base programs, and data communication programs; o data files, some from each of the several disciplines, containing real information of significant current interest to social scientists; and o lab assistants trained in the technical details involved in running the several programs against the various files.